I-Corps: Translation Potential of a Paper Sensor Platform for the Rapid Detection of Cancer and Viral Biomarkers

This I-Corps project is based on the development of a medical diagnostic platform for rapid detection of cancer and viruses. The long-term vision is to provide a tool for decentralized healthcare and large-scale epidemiological monitoring. Currently, there are critical gaps in cancer screening and infectious disease testing with long turnaround times (days) for external laboratory results and a lack of on-site diagnostic infrastructure that severely delay patient care in small and rural hospitals. This technology is designed for small clinics and rural settings. For cancer detection, the device can serve as an early-screening tool for clinics and laboratories and for infectious-disease diagnostics, it provides a portable alternative for point-of-care detection of the COVID virus, influenza, and other related pathogens. The system uses printed paper test strips combined with probes and uses a handheld detection device to achieve sensitivity comparable to that of current clinical assays within minutes. The platform has the potential to broaden access to rapid, inexpensive diagnostics by enabling testing at the point of need, and its compatibility with noninvasive sampling methods that may support use among pediatric and elderly populations. The system also offers value for epidemiological monitoring and outbreak response and also has the potential to provide better outcomes to patients in under-resourced areas.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a portable, low-cost, and high-performance biosensor for the detection of cancer and viruses. The device features printed paper strips integrated with plasmonic and magnetic nanoprobes and can be used for rapid and multiplex detection of cancer and viral biomarkers through a smartphone-sized surface-enhanced Raman scattering (SERS) spectrometer. The fiber-based nanoprobe can deliver Polymerase Chain Reaction (PCR)/ Enzyme-Linked Immunosorbent Assay (ELISA)-level sensitivity in minutes without typical laboratory infrastructure. In addition, it is designed to produce enhanced SERS signals for simultaneous and rapid identification of multiple biomarkers in different samples such as saliva and sweat. Laboratory testing has demonstrated femtomolar-to-picomolar detection limits, comparable to PCR and ELISA accuracy. The goal is to support decentralized healthcare and large-scale epidemiological monitoring. By combining PCR level sensitivity and specificity with the affordability and portability of lateral flow assays, the platform may achieve a platform that improves diagnostic testing for small clinics in rural settings.